Electrodynamics of Proximity Coupled Superconductor/Normal Metal Bilayers and Multilayers

The electrodynamics of proximity-coupled superconductor/normal- metal bilayers and multilayers will be explored, to uncover the basic physics of transferred superconductivity. A related novel practical application is the reduction of the inductance of high- speed superconducting transmission lines.